NeTS: Small: Long-range Ocean Communication Links Powered by Energy Harvesting

Advancements in maritime communications are severely lagging behind its land counterpart. Existing marine communication technologies usually have very limited capacity and are extremely expensive to operate. Novel solutions are demanded to meet the imminent requirements for broadband marine mobile wireless access. The purpose of this project is to fill the void of marine broadband wireless communications by developing long-range self-powered ocean wireless communication links. The ocean wireless link is composed of compact, maintenance-free and low cost floating wireless base stations (BS) that can be simply dropped into the water. Once in the water, the BSs start to harvest energy from ocean waves and establish communication links with each other. Users' broadband traffic, then, can be delivered to the Internet through these links. This project will bring revolutionary change to the maritime communications. New maritime networked applications and operation scenarios that are infeasible but highly desirable in the past can be enabled by this technology. It can have significant impact on all aspect of ocean related industry, such as fishing, recreational boating, marine transportation, oil and gas industry, ocean scientific study, and national security and defense.

The project will focus on two thrust areas: Thrust 1 is about ocean wave energy harvesting. For a BS to provide large coverage range and high capacity links to its users and other BSs, the BS must consume a large amount of energy. Existing technologies are too large in size and hence are expensive and hard to be stabilized in rough ocean states and require frequent maintenance. This project solves this critical challenge by building a novel ocean wave energy harvester that can effectively harvest tens of watts of power on typical ocean states with a floating buoy of less than 1 meter diameter. Thrust 2 is about building the high capacity marine communication links. The constantly moving ocean waves can affect the capacity, stability and range of the backhaul links among BSs. In this project, we will study how to analyze and model the channel and design antenna and radio hardwares to handle the complex channel of ocean communication links. The researchers will also study the unique features of ocean communication links and their potential beneficial and/or harmful impact on network communications.